Modeling the Impact of Releasing Genetically Altered Mosquitoes in Preventing the Transmission of Mosquito-Borne Diseases

Li

The investigator develops and analyzes mathematical models of
mosquito populations in which genetically altered mosquitoes have
been introduced into wild mosquito populations. The genetically
altered mosquitos are resistant to infection by mosquito-borne
diseases, so their introduction into wild populations could be an
effective measure in controlling mosquito-borne diseases such as
malaria, dengue fever, and West Nile virus. He aims to
understand the complexity of the dynamics of interacting
genetically-altered and wild mosquitoes and to predict gene
distributions in future generations of the population. The
population models are structured, that is, they account for both
gender and genetic structure. Within this structure, homogeneous
models, where all transgenic (genetically-altered) mosquitoes are
considered as a single group without distinction, heterogeneous
models, where homozygous and heterozygous transgenic mosquitoes
are distinguished, and multiple-transgenic models, where
genetically-altered mosquitoes have different transgenes, are
examined. Within each model category, formulas for the birth
functions and contact rates are established. To account for data
deviations and environmental noise, the investigator formulates
versions of these models that include demographic and
environmental stochasticities. Transmission dynamics of the
diseases are incorporated with various epidemiological models for
both human and mosquito populations. The investigator combines
analysis and numerical simulation to study qualitative and
quantitative features of the models, including existence and
stability of equilibria, existence of periodic and aperiodic
oscillations through bifurcations, and chaotic behavior and
transient dynamics. Model parameters are estimated or derived
from real biological data and the mathematical analysis of the
models covers all parameter regions.

Biologists recently have been able to genetically alter
mosquitoes so that they are resistant to malaria infection or
other mosquito-borne diseases, such as dengue fever and West Nile
virus. These diseases are transmitted between humans by
blood-feeding mosquitoes. Their spread and control have been
major concerns for public health. The introduction of transgenic
(genetically altered) mosquitoes into wild mosquito populations
could be an effective measure in controlling mosquito-borne
diseases. To explore this possibility, the investigator in
collaboration with biologists develops and analyzes mathematical
models that represent the population dynamics of wild and
transgenic mosquitoes. The models account for the spread of
transgenes through the mosquito population over multiple
generations. They help answer such questions as how effectively
transgenic mosquitoes would be able to compete for partners with
their wild counterparts, how long it would take for a new
resistance gene to penetrate the mosquito population, and how
effective it would be in mosquitoes that carry it. In this way,
the results of the project can provide useful guidance for public
health measures.